Nonlinear Partial Differential Equations from Continuum and Fluid Mechanics

DMS-9800888
PI: Sideris

The principal investigator will focus on several
representative problems connected with partial differential
equations arising in continuum and fluid mechanics.
The linear theory of the partial differential equations
for light propagation in anisotropic crystals will be
developed in a direction that will be useful for the
study of nonlinear media. The theoretical problem requires
the re-interpretation and elaboration of some of the
existing techniques. The equations of motion for
geophysical flows interacting with fast gravity waves
will be investigated. The quasigeostrophic limit of
rotating shallow water waves will be linked to the
life span of solutions to a rescaled version of the
equation of motion. Connections with classical compressible
fluid flow will be emphasized. The problem of the growth
and propagation of planar vorticity will be studied. The
eventual goal is to achieve a better understanding of
the interaction of vorticity waves with acoustical waves.

When intense light, such as a laser beam, passes through
a crystal, the optical properties of the medium change
with the intensity. The mathematical framework for
these nonlinear optical phenomena will be examined with
the eventual goal of understanding the threshold intensity
for which nonlinear effects are important. Geophysical flows
involve the large-scale dynamics of the winds and currents of
the earth oceans and atmospheres. The influence of the
earth's gravity on such flows will be assessed. Additionally,
the manner in which vortical structures can spread within
fluid flow will be examined.